Undergraduate Civil and Mechanical Engineering Technology Laboratory Development

This project employs microcomputer based data acquisition and control workstations for instruction in undergraduate engineering technology heat transfer and fluid mechanics laboratories. Each workstation consists of a microcomputer, printer/plotter, oscilloscope, and interface cards to be integrated with existing experimental apparatus. This equipment enables innovative approaches to laboratory instructions and offers students "hands-on" experience with modern instrumentation. The award is being matched by an equal amount from the principal investigator's institution.